Scholarship for Service in Information Assurance

This project establishes a scholarship program to attract and retain graduate and undergraduate students in an information assurance program. The program combines courses, practice, and research in information assurance and builds on established courses in cybersecurity and more traditional computer science topics. A number of creative mechanisms are used to recruit, retain, and place students, including an alliance with existing recruiting programs for women and minorities.